Symposia on Directions and Implications of Advanced Computing; Summers 1988 and 1989

This award provides modest support to enable expertise on ethical and value aspects of research and education in advanced computing to be incorporated into two technical and policy symposia -- called "Directions and Implications of Advanced Computing" (DIAC), sponsored by Computer Professionals for Social Responsibility. CPSR is a national professional organization with over 2200 members. The symposia will be held in the summers of 1988 and 1989. The 1988 symposium will take place on August 21, in the Earle Brown Center at the University of Minnesota - St. Paul. This is the day before the national conference of the American Association for Artificial Intelligence begins there. The symposium will include six presented papers, a plenary address, and a panel on "How are ethical values imparted and sustained in the computing community?" For 1989, the program committee will include a philosopher who specializes in the study of computer ethics and a social scientist who studies the influence of values in the selection of research priorities. Plans will expand the publicity and outreach of the symposia to improve the exchange and interaction between technical professionals and scholars and the dissemination of materials to lay audiences. Results from each symposium will include a book and journal publications. Editorials, commentaries, and educational materials may also be prepared. This project is undertaken by competent professionals with appropriate organizational support. Collaborative efforts are likely to continue well beyond the period of this award. The project is designed well; plans for review and dissemination of materials are appropriate. An award in the amount of $6,000 is recommended.